Nuclear Reaction Studies (Physics)

This research is directed toward developing practicable methods for calculating three-body reactions, in particular by extending the continuum-discretized coupled-channel (CDCC) theory developed by the principal investigator and his collaborators. Applications are to processes involving deuterons on nuclei, for which this approach appears to be the only one practicable of nuclei of intermediate mass, and to more exotic reactions in which final state interactions are particularly important.